Travel: Request for Student Travel Support for ICDE 2023

The provided support will enable United States-based students to attend and participate in the 39th IEEE International Conference on Data Engineering (ICDE 2023). This conference will take place in Anaheim, California, USA from April 3 2023 to April 7, 2023. The ICDE 2023 conference is a premier international technical event centered on various aspects of database research and practice. It provides a forum that promotes students and researchers to identify scientific foundations for building large-scale database management systems that can work ever more effectively. Efforts will be made to broaden the participation of underrepresented students and researchers. The conference will thus contribute directly to training the next generation of scientists who are both consumers and developers of technology in database management system design and implementation. The involvement of United States-based students will have a direct impact in creating a highly-qualified workforce that can take on the emerging data science challenges of the future.

Database research profoundly influences many domains of societal importance including health sciences, the field of Internet of Things (IoT), service-oriented computing, real-time business analytics, and social computing. The ICDE 2023 conference provides researchers and practitioners from academia, industry, and government agencies with an excellent opportunity to share their research and experiences on all aspects of data management and analysis at scale. The aims of the conference are multi-fold: (1) to provide an international forum for sharing research results addressing major challenges in next-generation database research; (2) to stimulate interactive discussions on research in the database area through panels, posters, tutorials, and student scholar roundtables; and (3) to motivate and engage future generations of researchers via the many conference and workshop presentations, interactive poster sessions, and panel and breakout sessions.